Peasant Politics in Global Arenas

In diverse world regions such as the Americas, Europe and South
Asia, free-market policies have forced small-scale farmers to transform
their productive strategies or face economic ruin. Peasant and
small-farmer organizations that once were oriented almost exclusively
toward national-level efforts to obtain local-level benefits are now
increasingly seeking allies across national borders, attempting to affect
global forces which impact their rural livelihoods. In some cases this has
resulted in violent actions such as the French peasants' destruction of a
McDonalds restaurant in a protest against "fast food"; and Indian farmers
burning a field of genetically modified cotton as a protest against
agribusiness. This anthropological project studies a new international
peasant and small farmer organization called Via Campesina, or Peasant
Road, which was founded in 1993 and has affiliates in about sixty
countries. The project will interview small farmer activists and donor NGO
personnel in five sites: Brussels, the headquarters of the European peasant
confederation; Saskatoon, Canada, where the network's Technical Secretariat
is based; Tegucigalpa, Honduras, headquarters of the network's
Organizational Secretariat; Managua, Nicaragua, the base of a Central
American small farmers' network that helped found the Peasant Road; and
Bangalore, India, home of one of the most active of the network's
constituent organizations. In each site the interviews and analysis of
documentary materials will focus on the political formation of activist individuals, the histories of
organizational consolidation, and the mobilization of resources and
alliances. The project will examine what movements defending economically
marginal constituencies gain and lose by forming part of global civil
society, as well as how new varieties of transnational politics have shaped
peasant and small farmer identities, both within the agriculturist
organizations and in relation to their NGO backers and antagonists. The new
knowledge generated by this proposal will advance our understanding of how
comparable grass-roots and global organizations function.